Sound Absorption in Heterogeneous Fibrous Materials

The primary objective of the project is to develop a competitive research proposal on "Sound Absorption in Heterogenous Fibrous Materials." Support of the project will assist a well trained, Black engineer to improve her research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.